Decay estimates for waves on a black hole metric

In joint work with Sergiu Klainerman and John Stalker,
we study the decay rate, pointwise and uniform, of solutions
to a linear wave equation on a Schwarzschild background metric.
We have preliminary results for each spherical harmonic.
This is the first step towards understanding the non-linear stability
of these metrics.

Roughly speaking, this corresponds to the propagation and decay of an
electromagnetic wave near a black hole. Our work starts with a careful
mathematical analysis of ideas known to physicists, and plans to
develop new tools.